Collaborative Research: RI: Toward Efficient Multilingual Model Development through Cross-lingual Alignment Transfer

Over the past several years, adapting large language models (LLMs) to new tasks and languages has become standard practice, with thousands of language- and task-specific variants now available. However, this paradigm has become increasingly burdensome for multilingual model development. Modern LLMs are typically trained through multiple stages of training processes, which are often repeated independently for each target language. Moreover, these adaptations are usually tied to a specific model version and must be recreated whenever a newer base model is released. The resulting redundancy imposes substantial computational costs, limits participation by smaller research communities, and slows scientific progress in multilingual AI. This project addresses this challenge by reimagining multilingual model development as a cumulative, community-driven process rather than a collection of isolated training efforts. The developed technologies enable multilingual capabilities to be developed, shared, and reused more efficiently across languages and model generations.

To realize this vision, this project develops methods for capturing multilingual adaptations as reusable capability updates that can be preserved and transferred across successive versions of a language model, allowing improvements to persist as models evolve. The project also introduces a modular adaptation framework in which lightweight adaptation modules are developed independently of large backbone models, enabling distributed collaboration among multilingual research communities without repeatedly retraining large-scale models. In addition, it investigates shared latent representations that align different models and languages, allowing capabilities learned in one setting to be projected and reused in others. To support the research community, the project will release an open library of reusable multilingual updates together with open-source tools for applying, transferring, and evaluating adaptations across evolving language models. The resulting framework will be evaluated on multilingual reasoning, instruction following, and language understanding across diverse languages and scripts, with the long-term goal of creating a more scalable, collaborative, and sustainable foundation for multilingual AI.